CAREER: Predicting the Synthesis and Synthesizability of Metastable Epitaxial Thin Films

Nontechnical Summary
This CAREER award supports theoretical and computational research, and associated education on how to make thin film materials with desired properties. Computer chips, sensors, displays, solar cells, and energy devices derive much of their functionality from thin-film materials. The optical and electronic properties of these thin films often vary based on which crystal structure forms during synthesis. In some cases, a metastable structure can have more valuable properties than the stable phase but may be more difficult to synthesize. Metastable materials are in a temporarily stable intermediate state that lies above the stable lowest energy state expected from thermodynamics. Learning how to grow a desired metastable phase instead of its many competing phases is a challenge for many materials systems. For thin films, this challenge requires resolving how structure selection depends on temperature, chemical environment, strain from the underlying surface, early-stage nucleation, and whether the film remains attached during heating and cooling cycles. This PI develops computational tools to predict how metastable oxide thin films can be synthesized and remain stable during operation. Concepts and computational methods developed through this research may help advance manufacturing of materials and devices. The research focuses on vanadium oxide and hafnium oxide materials relevant to advanced semiconductor technologies, including chip architectures for artificial intelligence. The project also enhances education for K-9 students, university students, and high-school teachers by making phase transformations more visual, exploratory, and intuitive. The integrated education plan includes an exhibit at the Ann Arbor Hands-On Museum featuring the triple point of water, virtual reality ternary phase diagrams for classroom teaching, and curriculum modules on thermodynamics for high-school physics and chemistry classrooms.

Technical Summary
This CAREER award supports theoretical and computational research, and associated education on how to synthesize thin film materials with desired properties. The PI develops a first-principles thermodynamic and kinetic framework to predict the synthesis and operational stability of metastable oxide polymorphs in epitaxial thin films. An overarching objective is to move the community beyond simple lattice-matching heuristics and to develop quantitative, predictive theories to account for competitive nucleation during thin film deposition. The research is organized around three scientific questions: 1.) Under what thermodynamic conditions does one oxide phase become favored over another during thin-film growth? The thermodynamic framework answers this question with high-dimensional phase diagrams that include precursor chemical potentials, temperature-dependent polymorph stability, epitaxial strain, surface and interfacial energies. 2.) How do metastable phases emerge through nucleation rather than direct equilibrium growth? The kinetic framework rationalizes how amorphous precursors, intermediate polymorphs, and interfacial energies control multistep crystallization sequences through non-equilibrium intermediates. 3.) Can a synthesized thin film remain adhered under thermal cycling? For operational stability, the project connects elastic strain energy, cracking, buckling, islanding, and spalling to thin-film reliability under thermal fatigue.